Conference: 2010 Biomedical Engineering Society Annual Fall Meeting: October 6-9, 2010, Austin, Texas

1048884
Schmidt

The annual meeting of the Biomedical Engineering Society will be held October 6-9 in Austin, Texas and hosted by The University of Texas at Austin in conjunction with the UT Austin Department of Biomedical Engineering. The 2010 meeting will feature three workshops, four plenary lectures, research presentations, a variety of special sessions, and valuable networking among members of the BME community.